Micro-Electro-Mechanical Systems (MEMs) Based Power Generation for Portable Systems

The goal of this Engineering Microsystems: "XYZ" on a Chip project is to investigate the fabrication of a micro heat engine, which will use commonly available liquid hydrocarbon fuels, to efficiently generate electric power to be used by Micro-Electro-Mechanical Systems (MEMS) and microelectronic devices. This micro heat engine is expected to deliver electric power in the range of milliwatts to watts while supplying voltages from 1 to 30 volts. The research involves the creation of a totally new class of heat engine, which takes advantage of thermophysical phenomena unique to small scales.

The result will be a heat engine that is efficient and that can be mass-produced with techniques developed for microelectronics and MEMS. The proposed engine is an external combustion engine, in which thermal power is converted to mechanical power through the use of a novel thermodynamic cycle which approaches the ideal vapor Carnot cycle. Mechanical power is converted into electrical power through the use of a piezoelectric generator. The generator, which takes the form of a flexible membrane, can be readily manufactured using MEMS fabrication techniques but still delivers high conversion efficiency. This approach eliminates the requirement to manufacture complex micromachines such as rotary compressors and turbines, resulting in a very simple but highly efficient device. In addition, since the micro heat engine is an external combustion device, it will have broad fuel flexibility, making it useful in a wide range of applications including military, space, biomedical, and consumer products.